Gordon Research Conference on Plasma Processing Science: Support for Graduate and Post-Doctoral Students

Support is provided to subsidize the participation of students in the Gordon Research Conference on Plasma Processing Science to be held in Tilton New Hampshire on July 21-26, 2002.